An Ice Core Derived Multivariate Proxy Record of Holocene Climate Change from the Penny Ice Cap, Baffin Island, Canada

9322045 Zielinski This award supports participation by a US research team from the University of New Hampshire in an international collaborative effort to collect and study an approximately 500 meter long ice core from the Penny Ice Cap on Baffin Island, Canada. This project is collaborative with the Geological Survey of Canada and Japan s National Institute of Polar Research. Field work includes study of snow pits and shallow cores in addition to collection and analysis of the main 500 meter long core. Laboratory work supported by this award includes analysis of major ions (sodium, ammonium, potassium, magnesium, calcium, chloride, nitrate, and sulfate), insoluble microparticles and methanesulfonic acid. These data will be integrated with analytical data collected in Canada and Japan and the complete set of analyses will be used to construct a proxy record of climate and environmental conditions for Baffin Island for the Holocene. These data from the Penny Ice Cap will complement records from the Greenland Ice Sheet Project (GISP): specifically, these data will provide information about climatic conditions at lower elevations that will allow a useful comparison to interpretations from the GISP cores. ***